Collaborative Research: Orbitofrontal Cortex and Emotion-Cognition Interactions

Although we often think of emotion as the foe of reason, scientists have recently discovered that emotions are sometimes helpful for decision-making. For example, if the car in front of you suddenly brakes, you may feel a jolt of fear. The feeling of fear signals that something must be done quickly to avoid harm. On the other hand, unwarranted fear may motivate the decision to avoid an otherwise rewarding situation. For example, a shy student may not benefit from a class discussion because they are too afraid to speak up. How does the brain compute which emotions are helpful for decision-making and when the influence of emotion should be suppressed or integrated? The goals of this project are to understand how the brain represents (a) helpful and hurtful emotions and (b) the incorporation and inhibition of emotional influences on decision-making. With support from the National Science Foundation, Jennifer Beer at the University of Texas and Robert Knight at the University of California, Berkeley will address these questions by conducting parallel neuroimaging (functional magnetic resonance imaging) studies of healthy individuals and behavioral studies of patients with brain damage in regions that are hypothesized to be involved in emotion and inhibition (i.e., specific subregions of the frontal lobes). The studies will present human volunteers with emotional stimuli that are designated as helpful or hurtful for a subsequent decision. The studies systematically assess the influence of emotions on a number of computations that support decision-making: perceptions of risk, attention, and how deeply the decision is considered. The neuroimaging studies will test for brain regions that represent (a) helpful and hurtful emotion and (b) the incorporation and inhibition of emotional influences on decision-making. The studies of patients with brain damage will test whether the damaged region is necessary for these processes.

This work will result in a more comprehensive understanding of how the human brain represents emotional information and its role in decision-making. This research may lead to new models of decision-making which would have significant implications for disciplines beyond cognitive neuroscience such as economics and psychology. The funding from this research will be used to support research training opportunities for undergraduate and graduate trainees in social psychology, cognitive neuroscience, and brain imaging. The project results will be disseminated through publications and presentations to scientific and lay audiences.